K-6 Supplementary Mathematics Materials for a Technological Society

Perhaps the most important changes that ought to be made in traditional mathematics textbooks in order to prepare learners for a technological world have to do with the way mathematical concepts are taught in the first place, how they are practiced, and the kinds of applications that are presented. Many of these changes are not dependent on the use of calculators and computers, and some are currently finding their way into commercial textbooks. Others, which depend on activities in which calculators and computers play an important role, are slower to appear significantly in commercial texts because of the unlikely commercial success of a text series that requires access to calculators and computers throughout. This project will focus on materials that model changes of the latter type. The project will develop supplementary mathematics materials for grades K-6 that will assume universal access to calculators and easy access to computers in the classroom. The materials will encourage problem solving, mathematical thinking, and intelligent use of technology. The final product will be a series of pamphlets (teacher materials and student materials) that can be used with any existing K-6 mathematics textbooks. A bibliography of appropriate calculator and computer books, software, and other materials will be provided in the pamphlets and referred to where appropriate.